Mechanisms of Reaction of Organometallic Radicals and Insertion Reactions

William C. Trogler of the University of California at San Diego will study the synthesis, structure and reaction mechanisms of 17-electron organometallic radicals as part of this project within the Inorganic, Bioinorganic and Organometallic Chemistry Program. The goal is to develop catalysts for new chemical transformations that could be applied to the synthesis of specialty chemicals and medicinal compounds. Another thrust of the project is the investigation of late transition metal coordination complexes as possible reagents for the activation of nitrogen-hydrogen and oxygen-hydrogen bonds in order to facilitate insertion of unsaturated organic compounds such as olefins into the metal-nitrogen and metal-oxygen bonds, respectively. This area is also aimed at better defining the requirements for catalytic addition of ammonia, amines and alcohols to carbon-carbon double bonds. Compounds to be employed in the first part of the project are neutral electron rich 18-electron complexes which can be electrochemically oxidized to give stable or short-lived cationic radicals. Representative of these are dicarbonyl(olefin)cyclobutadieneiron, (tertiary- phosphine)(olefin)cyclopentadienylcobalt and bis(olefin)cyclopentadienylrhodium. Compounds employed in the second part of the study will be mainly from the platinum group of metals.